Analyzing Fisheries Policy and Alaska Native Testimony on the Area M Salmon Fisheries

The proposed research is an investigation of modern Aleut society and culture in the global geo-political and economic context of the North Pacific commercial fishing industry. Building on her dissertation research, funded by the Arctic Social Sciences Program, the PI will investigate the contested nature, politically, economically and culturally, of the North Pacific southwestern Alaska fishery called Area M. Through archival research, formal and informal surveys, interviews, and participant observation, Reedy-Maschner has the potential to shed light on the adaptive strategies of contemporary indigenous people, the Aleut, to the contemporary geo-political and economic contexts of their lives.